Excitation Transfer in Luminescence of Semiconductors

The direct transfer of excitation energy among localized states via tunneling (hopping) in semiconductors is to be investigated. This process has often been neglected in the past. A study of the extent and of the mechanisms governing this transfer related to donor-acceptor pairs (DAPs) are necessary for a full understanding of luminescence phenomena. The proper material parameters for the luminescence processes will be re-evaluated using samples which have negligible transfer or where the correction factors are known. The work will center on Zinc-Selenium, for which a large number of samples are available. The study will include a detailed examination of time decay, and of spectral and intensity evolution as a function of excitation intensity and wavelength, temperature, and impurity concentration.